Rocky Mountain Advanced Technology Education Center

In recognition of the importance of complex technologies to the future of the United States' economy, the Colorado Community Collegeland Occupational Education System (CCCOES) proposes to establish the Rocky Mountain Advanced Technology Education Center (RATEC). The purpose is to provide a comprehensive educational center to ensure response to the region's identified needs to provide resources to insure: well-educated mathematics, science and engineering technicians; effective development of new educational technologies, internationally competitive manufacturing; and integration of current research into advanced technical education. Collaboration for RATEC will include: K-12 schools, colleges, universities, business, industry, and government. RATEC will disseminate information and provide in-service programs in Colorado with invitations issued to states throughout the Rocky Mountain Region and the nation. The system of community colleges--utilizing its centralized HEAT Campus--will coordinate and disseminate curricula and other educational products. The five technologies are: Community College of Aurora, Metrology: Community College of Denver, Precision Machining; Front Range Community College, Environmental Science; Pueblo Community College, Manufacturing; and Red Rocks Community College, Biotechnology.